Partial Support of the Board on Earth Sciences

This action provides partial support for the Board of Earth Sciences, National Research Council, National Academy of Sciences. The Board provides oversight of the solid-earth science activities, assesses the health of the disciplines and identifies research opportunities.